Mobile Communications and Networking: Low Power/Complexity Transceivers for Adaptive Integrated Wireline-Wireless Multimedia Transmissions

9979443
Giannakais

Emerging broadband wireless networks for multimedia information dissemination demand increasingly higher and variable rates. The integration of wireline-wireless networks, the size and low-power limitations in portable units, user mobility, and channel propagation effects pose major challenges to wideband communications. Code division and multicarrier systems offer two multiple access schemes with great potential to cope with these challenges, provided that their complementary advantages and performance limitations, in the presence of multipath propagation and multiuser interference, are addressed.

The PI's propose to develop and analyze an optimal generalized multicarrier code division multiple access (MC-CDMA) system for broadband wireless mobile communications. Specifically, they take a global system view that incorporates adaptive, scalable and robust joint source/channel coding and multiple access techniques subject to power consumption and networking constraints. Their flexible generalized MC-CDMA precoder designs guarantee perfect interference elimination with simple linear receivers and are robust to channel fading effects.

Basic research, algorithms, and analytical performance evaluations are complemented by experimental validation with a millimeter-wave software radio testbed. The experimental facility will also foster enhanced student training and multidisciplinary research and development with committed collaborators at the University of Minnesota and the local industry.
***